Presidential Faculty Fellows Award

9350256 GRAUER This award provides support to Dr. Anne Grauer under the National Science Foundation's Presidential Faculty Fellows (PFF) Program. The PFF Program was established at the request of the President of the United States to recognize and support the scholarly activities of some of the Nation's most outstanding science and engineering faculty members early in their careers. Awards are intended to allow Fellows to undertake self-designed, innovative research and teaching projects, to establish research and teaching programs, and to pursue other academic related activities. This award will allow the investigator to pursue her research interests in the patterns of health and disease in historic populations as a means towards reconstructing the past. In the reconstruction of history, reliance has been placed upon documentary sources which are often biased and frequently reflect the lives of wealthy and well-educated adult males. Comparably less is known about the health, disease and lives of women, children, and the poor. Dr. Grauer, using paleodemographic and paleopathological techniques, will focus her research on this "forgotten" population. Specifically, she will excavate the 19th century Almshouse Cemetery near Milwaukee which provides a large sample of over 1200 individuals and well preserved skeletal remains. The goals of the research are to reconstruct patterns of health and disease, explore the biases of these same scientific techniques through the analysis of the historical documentation, and formulate hypotheses concerning human adaptation in urban environments under extreme conditions, with particular emphasis being placed upon adaptations made by women and children and the poor. This research promises to make an important contribution to our understanding of the history of the urban poor. Also, this five year award will provide an opportunity for the investigator, who is an exceptional and innovative teacher, to train undergraduate a nd graduate students in biological anthropology. ***